Focused Research Groups (FRG): The Dynamics of Growing Biogels

The importance of biogels in the function of biological
systems is increasingly recognized, yet little theoretical work
has been done to understand their behavior. Mathematics is
well-suited to sorting out the interplay among the many forces
(mechanical, electrochemical, and biochemical) that determine
biogel structure and function. The investigators use
mathematical tools to explore four closely related problems of
biogel growth and dynamics, with an emphasis on pattern-forming
mechanisms and the relationship between pattern and function.
The four problems are biofilm and blood clot formation and
function, gastric protection of the stomach, and the behavior of
biogels in contact with a moving fluid. Models are developed to
understand how physical properties such as the viscoelastic
constitutive properties and the gel morphology are determined and
controlled, and how these properties affect the biological
function of the biogel. The investigators use analytical and
computational tools to examine gel growth and dynamics on
different scales using various models (continuum, discrete,
isotropic, anisotropic), while attempting to incorporate what is
known experimentally, and to expand the experimental database
about specific biogel systems.
Biogels are composites of water, filamentous protein
networks, and other chemicals, and are increasingly recognized as
having profound influence on the function of many biological
systems. Important biological settings in which these biogels
play a major role include blood clot formation,
difficult-to-treat bacterial infections, and the proper
protective functioning of the stomach lining. Improved
understanding of how biogels are formed and how their properties
are regulated is critical to understanding these important
processes and how they can be manipulated to improve human
health. Because the formation and regulation of biogels is
governed by physical and chemical properties and because these
properties can be expressed mathematically, mathematical tools
can be brought to bear on these problems. Through mathematical
analysis and computational simulations of biogels, a wealth of
detailed data can be obtained that complements the data
obtainable from traditional laboratory experiments. Hence the
combination of mathematical and experimental investigators
brought together in this project is expected to lead to important
new insights about biogel behavior. The project includes
mathematicians, a bioengineer, and a biologist, and provides
interdisciplinary research and training opportunities for
students and postdocs.